U.S.-Italy Cooperative Research: Waveform Relaxation Methods

9301044 Jackiewicz This two-year award supports US-Italy cooperative research in waveform relaxation methods between Zdzislaw Jackiewicz, Arizona State University, and Alfredo Bellen, University of Trieste, Italy. The objective of their research is to investigate convergence, order, stability, and contractivity properties of time-point relaxation and waveform relaxation Runge-Kutta methods for ordinary differential equations. Such methods are appropriate in a parallel computing environment and have been successfully used for time domain analysis of large dynamical systems. Jackiewicz and Bellen are specialists in waveform relaxation methods, which aim to develop effective numerical methods for systems of ordinary differential equations. The topic area is important because systems of ordinary differential equations arise naturally in modeling a variety of important physical, biological, and geological phenomena and in many industrial applications. This collaboration allows the Italian expertise in parallel methods for differential equations to be complemented by Jackiewicz's experience in general linear methods for differential equations. This should lead to a better understanding of numerical solution of ordinary differential equations in a parallel computing environment. * * *